Advanced Optimization Methodologies for Signal Processing and Communication

Luo
The imvestigator studies conditions under which certain
convex cones can be represented or approximated by linear images
of the positive semidefinite matrix cone. These conditions are
the essential tools for the exact finite reformulation of
semi-infinite constraints arising from robust optimization. The
project focusses on cones of nonnegative mappings and
applications to robust optimization, analysis of interior point
methods for adaptive filtering and robust beamforming, and
efficient optimization methods for the design and analysis of
multi-user communication systems and for decoding and detection
in multi-input-multi-output wireless communication channels. The
theoretical issues are all strongly motivated by the need to
develop efficient optimization algorithms for problems in signal
processing and digital communication systems.
The project aims at developing new computational techniques
to solve problems in the information and communication technology
area. The latter area has, over the last thirty years, been
relying mostly on traditional numerical optimization methods,
which can run into difficulty when the problem size becomes large
or when data rate is high. In this project, the investigator
studies ways to use state-of-the-art optimization techniques and
computational tools to resolve some well-known computational
bottlenecks from the information and communication technology
area.